SCREMS: Next Generation Parallel Computing Infrastructure for Numerical Relativity

The Center for Computational Relativity and Gravitation in the School
of Mathematical Sciences at the Rochester Institute of Technology will
purchase a computer cluster which will be dedicated to the support of
research in the mathematical sciences. The equipment will be used for
several research projects including in particular: the development of
new, highly efficient, extremely high accuracy numerical algorithms to
solve the non-linear equations of general relativistic
magnetohydrodynamics (GRMHD). Magnetohydrodynamics represents a
difficult challenge numerically due to the small-scale features
introduced by shocks in the fluid material and the magnetic fields.
The problem can only be tackled efficiently using higher-order finite
differencing methods (greater than fourth-order), including those
designed to evolve conservative systems, in conjunction with
highly-scalable adaptive-mesh-refinement (AMR) algorithms. The next
generation of multi-core processors are expected to have up to 32
individual cores in the near future, and computational nodes with more
than 64 cores will soon follow. The challenge, then, is to
efficiently parallelize the algorithm on these many-core systems. We
will do this by optimizing inter and intra-node communication via a
combination of openMP and MPI. The proposed cluster, which will
initially have 12 nodes (upgraded to 16 in year 2), each containing 8
cores and 16 GB of RAM, interconnected with a high-speed, low-latency
InfiniBand network, will model these future clusters so that we can
develop new algorithms. This cluster will act as the central workhorse
for developing numerical techniques and performing GRMHD simulations
for the next 3 years.

Partial support for this award is from PHY, Gravitational Physics program.